Mathematical Sciences: Moduli of Manifolds with Canonical Class Zero

Professor Todorov will work on the geometry and topology of Calabi-Yau manifolds and K3 surfaces. In particular he wants to work on the Teichmuller theory and the analytic discriminant of Calabi-Yau manifolds. He also wants to study the Krotweg de Vries equation. This is research in the field of algebraic geometry, yet it directly connects to two of the great advances in theoretical physics in this century--quantum mechanics and general relativity. Algebraic geometry itself is one of the oldest parts of modern mathematics, but one which has had a revolutionary flowering in the past quarter-century. In its origin, it treated figures that could be defined in the plane by the simplest equations, namely polynomials. Nowadays the field makes use of methods not only from algebra, but from analysis and topology, and conversely is finding application in those fields as well as in physics, theoretical computer science, and robotics.